Hormonal Influences on Brain Development

Neurobiology has benefited greatly from the use of model systems. Simple invertebrate preparations have provided a means to study neuronal communication. Results from these models have proven applicable to mammalian systems and have shed light on molecular mechanisms underlying behaviors, especially the neurobiology of learning and memory. Brazilian opossums, with their great immaturity at birth, have proven to be an excellent model for studying neural development. Dr. Jacobson has an active colony of these valuable animals which, unlike the North American opossum, are small in size, and easy to handle and raise in the laboratory. Moreover, these Brazilian opossums are pouchless thus providing an easy access to young. Thus, these animals are ideal for investigating the mechanisms underlying the sexual differentiation of the brain. Dr. Jacobson will be maintaining her colony during the next year and will continue her work on the development and steroid regulation of sexual dimorphisms within the CNS. In addition, the opossums will be available to other investigators whose science will benefit greatly from the use of this valuable model system.